Mathematical Sciences: Group-theoretic Algorithms

This project is in the area of group-theoretic algorithms, concentrating on methods for studying a given finitely presented group. Experimental implementations of the Knuth-Bendix procedure for strings will be developed and used to explore the behaviour of the Knuth-Bendix procedure with large rewriting systems. Also versions of the Baumslag-Cannonito-Miller polycyclic quotient algorithm will be tested. Other areas of research are determining the order of a permutation group or a matrix group over a finite field described by a set of generators, and computation within infinite polycyclic groups. This project is on the interface of computer science and mathematics. It is concerned with automating processes involved in mathematical problem solving. This is research promisesto impact algebra and symbolic computation.